Waste-To-Energy Technology Engineering Issues: The Impact of Measurement Capabilities Limitations

Current uncertainty in measurements made inside incinerators leads to overly conservative safety factors. These in turn preclude economic performance and discourage the introduction of innovative solutions. This study will establish the accuracy levels necessary for future diagnostics devices, if they are to be useful in the determination of reasonable regulations and efficient incinerator design. The impact of such a goal for the diagnostics community would serve as a focus for the design of better instruments, susceptible of accuracy and longevity in the very adverse environment of incinerators. The resulting knowledge would lead to improved, economically viable designs and to a better acceptance of these necessary pollution control devices by the surrounding communities.